Mathematical Sciences: NSF/CBMS Regional Conference in the Mathematical Sciences "Turbulence of Nonlinear Waves With Applications to geophysics and oceanography, May 25-29,1992"

The search for satisfactory models of turbulence is still one of the major problems of mathematics and physics. Because of its importance in diverse areas such as aeronautics, geophysical fluid dynamics, atmospheric sciences, magnetohydrodynamics, and astrophysics, tremendous effort has been devoted to its study over the last few decades. A broad spectrum of mathematical tools from partial differential equations, stochastic processes, statistical mechanics, dynamical systems, renormalization theory, statistics, and functional analysis has been employed in an effort to elucidate its nature. This project will support an NSF-CBMS Regional Research Conference in the Mathematical Sciences on Turbulence of Nonlinear Waves with Applications to Geophysics and Oceanography to be held May 25-29, 1992 at Case Western Reserve University. Professor Vladimir Zakharov of the Landau Institute of Theoretical Physics (Moscow) and the University of Arizona will be the principal lecturer. To stimulate interest and activity in mathematical research, the National Science Foundation each year supports a number of NSF-CBMS Regional Research Conferences in the Mathematical Sciences. Each five-day conference features a distinguished lecturer who delivers ten lectures on a topic of important current research in one sharply focused area of the mathematical sciences. The lecturer subsequently prepares an expository monograph based upon these lectures, which is normally published by the American Mathematical Society or the Society for Industrial and Applied Mathematics, or jointly by the American Statistical Association and the Institute of Mathematical Statistics. Certain features differentiate these conferences from typical research conferences. These are: (1) Focus on a single important and timely area of research by a leading practitioner, (2) Continued effect and local stimulation through regional emphasis, (3) Panel review for quality, breadth, and timeliness, and (4) Published monographs for a wider audience.